An Interactive Calculus Laboratory

The Interactive Calculus Laboratory consists of a network of NeXT workstations running Mathematica. Students are learning calculus by experimenting symbolically and graphically with fundamental concepts, concentrating less on routine calculations, and thinking more about underlying principles and graphical realizations. The NeXT workstations facilitate the use of Mathematica by their simple user interface, their l5- MIPS speed, their high resolution screens, their ancillary software', and their networking features.